Numerical Methods for Balance Laws with Applications to Shallow Water and Multiphase Flows

This project is concerned with the development, analysis and
implementation of numerical methods for balance laws. The focus is
on systems which arise by averaging the multidimensional Euler
equations of fluid dynamics. The averaging process produces
source terms that are inherently in nonconservation form, whose
presence has major consequences for the theory as well as for
computations of solutions. Computational difficulties include
nonuniqueness of solutions, loss of strict hyperbolicity, lack of
guiding principles in discretizing nonconservative products and
difficulties to compute accurately near steady-state solutions.
The aim of this project is to understand, from a numerical view
point, how these various characteristics are interconnected,
to identify numerical features that need to be respected
and provide design principles which lead to simple and efficient
numerical schemes. This research program will be carried out by studying
a series of nonconservative models, and offer numerical frameworks within
which the computational difficulties may be addressed: (i) a
relaxation approach addressing the loss of hyperbolicity, and
inaccessibility of eigenstructure; (ii) discrete averaging models,
giving accurate estimates on closure terms and providing unambiguous
approximations for nonconservative products; (iii) hybrid algorithms
for two phase flows, which preserves the correct jump conditions across
discontinuities in coefficients. As an application, the methods will be
used to study two layer exchange flow between reservoirs, and extended
to multilayer shallow water flows through a channel contraction.
Analytical predictions are available and will be used for validation.

Physical equations of the type considered in this project are used to
model a wide range of fluid flows. They are used to model large scale
atmospheric and oceanic flows over terrains, and to describe ground flows
in porous media. They model river and coastal flows, dam breaks
and flooding, such as the flow in the Rigolets strait connecting
the Gulf of Mexico and Lake Ponchartrain near New Orleans. They are used
in hydraulics, to describe and control exchange flow between reservoirs.
In multiphase flows, they model the dynamics of droplet suspensions such
as sprays in environmental applications, or cloud dynamics, which may be
important in visibility military applications. Alongside experiments
and theory, numerical simulations constitute a major tool of study in
these applications areas, and the issues addressed in this project are
fundamental to their development. To date, numerical methods for balance
laws are still facing major challenges, and provide incomplete and
unsatisfactory answers. The directions outlined in this project address
these challenges, they are original, they are new and they emphasize
general design principles that can be exported to other systems of
similar structure. The completion of the proposed project is expected
to have a significant impact on computational practices in these
communities.